Symposium: Remotely Controlled Colloids, Interfaces and Biosystems

1339532
PI: Luzinov

The field of colloidal suspensions remotely controlled with an application of electric, magnetic, electromagnetic, or acoustic field has seen a rapid growth in recent years because of its potential applications in many fields including health, defense, bio or chemical sensing, and bioelectronics. For example, one may use suspensions of specialized magnetic particles, with their surface suitably modified with attached polymers, to block temporarily a blood vessel for microsurgery with the help of applied magnetic field.

This award will provide partial support towards travel for approximately 30 invited speakers to attend a four-day (April 7-11, 2013), American Chemical Society (ACS) Symposium entitled, Remotely Controlled Colloids, Interfaces and Biosystems in New Orleans. The invited speakers cover wide range of interdisciplinary expertise drawn for academia and medical and defense industry. The symposium will provide a forum for these experts to present recent advances in the field and to give a sense of major challenges that need to be addressed in the near future.